Enabling Practical Cross-domain Logic-based Access Control

Access control is one of the key aspects of information security. In
the past decade and a half, significant progress has been made in
increasing the assurance and expressiveness offered by access-control
systems, in large part through the use of formal logics to model or
implement these systems.

A particular challenge in building access-control systems is to allow
delegation between domains that use different authorization logics.
This project focuses on developing a framework for interfacing
different, mutually incompatible authorization logics. The framework
provides an interface for communication between logics via a very
small set of primitives that imposes no fundamental constraints on the
design of the logics that use it. Part of this framework will be an
architecture to facilitate the automated construction of proofs of
access.

Another barrier to implementing logic-based access-control systems is
that substantial effort is typically required to retrofit existing
systems to support the use of theorem provers, proof checkers, and
associated infrastructure. This project will investigate several
approaches to solving this problem, including automated program
rewriting and automated construction of lightweight theorem provers
and proof checkers.